Mathematical Sciences: Measures, Dynamics and Dimensions

Mauldin 9502952 Our project consists of three sections. In the first section we propose to deal with infinite systems of conformal maps, investigating the topological and geometric structure of the corresponding limit set. We intend to study and to compare conformal, invariant, harmonic, Hausdorff and packing measures in a general setting as well as in the case of some special systems primarily given by irregular systems, continued fractions with restricted entries and apollonian packings. We also plan to explore the problem of conjugacies of such systems, to study random systems and invariant continua for attractors and repellors. In the second section we plan to deal with the phase transitions of pressure on Julia sets and integral means of Riemann maps of a simply connected basin of attraction to a periodic stable point or rationally indifferent periodic point. We intend to provide appropriate definitions of pressure, to establish relations between pressure and integral means and to investigate the phenomenon of phase transitions by means of dynamical systems and thermodynamic formalism. We also want to explore the geometry and dynamics of equilibrium states of Holder continuous functions. In particular we are interested in the asymptotic behavior of of iterates of the Perron-Frobenius operator and the sequence of random variables generated by Holder continuous functions. In the last section we propose to deal with geometry and dynamics of rational functions with no recurrent critical points in the Julia sets and Collet-Eckmann maps, exploring the problems of Hausdorff and box dimension and the influence of critical points on finiteness of sigma-finite invariant measures. We also plan to study harmonic measures, beginning with Holder continuity of their Jacobians. We propose research involving measures and dimensions of various kinds, for example Hausdorff, packing, conformal, and ha rmonic. These measures are natural notions of "volume" in the spaces and objects we study. Such spaces and objects may be given by some algorithm which allows us to approximate the final object and volume step by step. These spaces also have some natural "motion" or dynamics acting on them. Our research involves developing techniques which allow us to study both geometric and dynamic features of our system. The specific problems of this proposal arise from many contexts and their solutions will involve a mixture of techniques from various areas: complex analysis, continua theory, dynamics, functional analysis-theory of positive operators of the Perron-Frobenius type, measure theory and probability, statistical physics-equilibrium states, phase transitions and thermodynamic formalism. ***